Research Topics in Parallel Computing and Complexity Theory

Research Topics in Parallel Computing and Complexity Theory Research will be conducted in the areas of parallel computing and computational complexity. Specific topics include: o development of general methodologies for design and analysis of algorithms for parallel networks; development of techniques for efficient simulations between networks with different architectures; o investigation of the computational power of parallel networks in comparison to sequential models and other models of parallel computation; o mapping algorithms onto fixed-size parallel architectures and experimental validation; o development of techniques for showing problems to be in NC (the class of problems solvable by boolean circuits of polynomial size and polylogarithmic depth); o investigation of properties (e.g., closure properties) of NC; o topics in complexity theory: space-time trade-offs, hierarchies of computation, nondeterminism versus determinism, parallel versus sequential, (un) decidability of decision problems.